Soft X-Ray Sources and Optics for High Spatial, Temporal, and Spectral Resolution Interferometry and Microscopy

Proposal Number: ECS-961224 Principal Investigator: Howard Milchberg Title: Soft X-ray Sources and Optics for High Spatial, Temporal and Spectral Resolution Interferometry Abstract: The research focuses on the construction and application of a high resolution (25 nm) X-ray microscope to problems in lithography and biology. The instrument will be suitable either for scanning or imaging microscopy and has the potential of enabling single shot imaging of biological samples without distortion of the samples.